MRI: Acquisition of High-Performance Distributed Computing and Storage Infrastructure at UTA

EIA-0216500
Sharma Chakravarthy
Yuksel A. Aslandogan; Sajal K. Das; Lawrence B. Holder; Jachoon Yu
University of Texas Arlington

MRI: Acquisition of High Performance Distributed Computing and Storage Infrastructure at UTA

This proposal, acquiring high-performance computing and storage infrastructure, aims to satisfy the research needs of several groups that require distributed and parallel computing resources. Involving collaboration from the departments of Computer Science and Engineering (CSE) and Physics at UTA, and Dermatology at UT Southwestern Medical School, the research efforts include:
a. Database and Data Mining (e.g., visualization of search),
b. Software Engineering (e.g., formal methods),
c. Physics (e.g., high energy physics -HEP- experiments),
d. Dermatology (e.g., image database/analysis of skin lesion),
e. Distributed Computing (e.g., scheduling, load balancing on Information Power Grid), and
f. Networking (e.g., wireless, optical; simulations).

The key characteristics involve:
a. Multi-disciplinary use of common equipment and infrastructure,
b. Multi-institutional sharing of equipment,
c. Enhancing current-research efforts and creating new synergy leading to new research ideas,
d. Combining the high-bandwith of Internet 2 with high-performance computing and storage infrastructure to facilitate large image databases and video streaming research, and access to vast amounts of experimental data from outside the campus.

Educational impact is expected by enhancing the experiences of at least 40 CS and 10 physics students and 15 faculty using the resource in an interdisciplinary mode. Joint activities should lead to high quality of inter-disciplinary research fostered by the collaboration.